Classification Theory of 4-Manifolds

This research project concerns the geometric classification theory
of topological 4-manifolds. The classification techniques
are known to hold for a class of good fundamental groups, and are
conjectured to fail in general. This conjecture remains a central
open problem in 4-dimensional topology.
One goal of this project is to prove that the disk embedding
theorem, and consequently the surgery and s-cobordism theorems, hold
for amenable fundamental groups. Another approach to surgery,
explored in the project, is provided by the disk
embedding conjecture up to s-cobordism. The topology of
4-manifolds is closely related to link-slicing problems, and the
third part of the project aims at extending the results about
slicing to Whitehead doubles of homotopically trivial links.

The classification of possible large-scale structures in dimension
4, which locally look like the 4-dimensional space-time, has been
a focus of intensive research over the past 20 years. This area of
research lies at the intersection of topology, geometry, analysis
and physics. This project is aimed at classification of
4-dimensional objects with amenable fundamental groups, and
at proving the non-existence result of certain 4-dimensional shapes
with large fundamental groups, which contain many loops that cannot
be contracted.